Quantum Tunneling in One- and Three-Dimension Systems

9310260 Goodkind This combined experimental and theoretical project will study quantum tunneling in a one-d model system and a three-d model system. The one-d system consists of electrons tunneling out of the shallow potential well associated with their image potential at the surface of helium. The three-d system is solid He-4. Electrons on helium represent a model system where tunneling rates can be measured as a function of applied electric field and electron density. This system is appropriate to study using the one-d time-dependent Schrodinger equation. Solid He-4 is the simplest possible solid in nature so that its properties provide fundamental understanding applicable to all solids. In He-4, lattice defects such as vacancies are expected to be delocalized as a result of their ability to tunnel between potential minima of the periodic lattice. However, experimental evidence about their concentration and their properties is limited and inconclusive. The proposed research is intended to resolve certain outstanding issues in both systems. Further, the tunneling phenomena are potentially of technological interest as microelectronic devices become smaller and tunneling between closely spaced structures more likely. %%% This is a combined experimental and theoretical which will study quantum tunneling in two model systems. Quantum tunneling is analogous to finding your car outside your garage in the front yard in the morning, even though it was left locked inside the night before. This macroscopic event is very unlikely, but if the car and surroundings are shrunk to atomic dimensions, tunneling becomes a measurable phenomenon, particularly at very low temperatures. In this work, one model system consists of electrons tunneling through a potential barrier to leave a surface. In the other model system, helium atoms in the solid tunnel from lattice sites (garages) to defects (front yards). In both cases, there are fundamental issues of both a theore tical and experimental nature that need to be resolved. Further, the tunneling phenomena are potentially of technological interest as microelectronics devices become smaller and tunneling between closely spaced structures more likely. ***